Doctoral Dissertation Research in Geography and Regional Science

This doctoral dissertation award will support research on the cultural ecology of Amerind depopulation. The purpose of the project is to construct systems dynamics computer simulation models in order to assess the historical-statistics of Amerind depopulation, examine the roles of purported causes of these population collapses, and make interregional comparisons. Controversy exists about the magnitude of pre-Colombian Amerind populations and the scale of their ensuing decline after the Spanish conquest. This project introduces systems dynamics modeling to the study of New World Indian depopulation. The technique allows explicit and dynamic linkage of the factors directly governing human population survival and reproduction to elements in the broader environmental, sociolcultural, technical, and historical milieux. By comparing the models developed for different regions, this study emphasizes the importance of location in understanding differing patterns. More broadly, this project will help us decipher how multiple factors have affected the population decline of aboriginal societies after European contact and add to our general knowledge of population change.